Science Teacher Enhancement Program

This is a five year project in which thirty secondary science teachers from Howard County, Baltimore County and Baltimore City will participate in a research program at two campuses of the University of Maryland, UMAB and UMBC. The summer components will consist of a seven week, full time research practicum in the biological/biomedical sciences and a seven session research colloquium. The colloquium has three distinct foci: principles of research methodology, recent advances in specific research area and translation of research methodology into the classroom. The classroom application will be the focus of monthly colloquia during the school year. Scientists from the University of Marlyand will act as mentors for the research and science educators from each LEA will direct the pedagogical aspects of the program. Six teachers will be phased in each year of the project with each teacher participating for three years. School districts are cost- sharing a good portion of the total cost to insure that this strategy for teaching science and the introduction of research methodology into the classroom is implemented. The project will lead to an increased understanding of content and appreciation of biological knowledge, preparation for curriculum redesign and improvement, establishment of a cadre of "master teacher" with research experience, and increased interactions among participating teachers and faculty of the University of Maryland.